Japan JSPS Program: Photoelectrochemical Information Recording Systems

Sukamto This award will provide supplementary support to enable Dr. Johanes Sukamto of the University of Minnesota to conduct collaborative research with Dr. Akira Fujishima for 18 months at the Department of Synthetic Chemistry, University of Tokyo. They will investigate a new photoelectrochemical information storage system based on a novel photon-mode storage technique. The photon-mode technique stores information as a photon- induced chemical change of the storage media and provides an alternative to the diffraction limited heat-mode storage techniques which rely on the thermal energy of a laser light. This new technique uses the photochemical, electrochemical, and photoelectrochromic properties of thin films such as molybdenum oxide and Langmuir-Blodgett films and allows the possibility of using semiconductor lasers as a photochromic reaction light source for a photon-mode memory device. Dr. Sukamto's theoretical expertise in photoelectrochemistry will complement Dr. Fujishima's extensive experience in preparing the molybdenum oxide and Langmuir-Blodgett thin films and will facilitate an increase in absorption capabilities for these thin films.